RUI: Control Mechansims in Sperm Motility

A technique allowing fully motile sperm to be studied in the absence of an intact plasma membrane ("sperm models") will be used to study the chemical and mechanical events involved in flagellar movement. Micromanipulation and microdissection of sperm cells will be conducted to explore the mechanical responses of the intact flagellum and its isolated parts. The importance of cyclic AMP and intracellular calcium in the sliding interaction between outer doublet microtubules of the axoneme will be explored. The role of calcium in flagellar curvature will be examined to determine which component of the axoneme mediates the curvature and what role curvature may play in coordination of the beat cycle. The effects of pH on cAMP dependent phosphorylation and calcium dependent dephosphorylation of axoneme proteins will be investigated for possible biochemical links between pH and sperm activity. Finally, an explanation of the events in a cycle of flagellar beating is proposed and experiments will be conducted to test this hypothesis. In this proposed view, energy from the sliding tubule mechanism is stored in calcium-regulated internal elastic elements of the axoneme. Recoil from release of the stored energy is used to power one stroke of the flagellar cycle and trigger the next cycle of microtubule sliding. The objective of this project is to better understand the events producing the rhythmic beating of a flagellum and the role of cyclic AMP and calcium in regulating this process. These investigations are expected to enhance our knowledge of processes that underlie motility in cilia and flagella.